CISE Research Instrumentation: Wireless Networking and Collaborative Knowledge Building Research

9818371
Vaidya, Nitin H.
Zhao, Wei
Texas Engineering Experiment Station

Wireless Networking and Collaborative Knowledge Building Research

This research instrumentation enables research projects in:

- Adaptive Connection Management for Real-Time Applications over Wireless,
- Service Replication for Mobile Environments,
- Collaborative Knowledge Building through Incremental Formalization, and
- Data Transport and Routing in Mobile and Wireless Environments.

This award contributes to the purchase a protocol analyzer, a computerized whiteboard with projector, and laptops with wireless and global positioning system cards at the Department of Computer Science of Texas A&M University. This equipment facilitates research on several research projects in Computer and Information Science and Engineering, including, in particular, the aforementioned projects. The first project will provide adaptive QoS since the network conditions are likely to be time-varying. The second project will extend prior work on IP address and port-number-based-service replication in fixed networks to deal with mobility and higher application level service replication. The third project is a sense-making process
where information is discussed and manipulated until agreement is reached. It includes capturing emergent understandings and enabling incremental formalization, recognizing implicit structure within informally presented information, suggesting and automating formalization, aiding the development of shared languages, and improving understanding of knowledge building processes. The last project seeks to address packet losses due to wireless errors, hand-off, and route change in an end-to-end manner, rather than involving switches or routers, etc. These research projects are designed to advance the state of the art in areas related to wireless networking and collaborative knowledge building. The above equipment facilitates experimental evaluation and demonstration of ideas developed in the research projects.